Engineering Summer Program

9452671 Steadman The University of Wyoming seeks to initiate a three-week, residential, Young Scholars program in engineering for 36 students entering grade 12. The project provides students with classroom lectures and discussions, field trips, hands-on laboratory and research experiences in the specific engineering areas of material science, environmental, and computer-assisted engineering. The students are guided by experienced university faculty to develop research methods and problem-solving skills. Projects developed during their research experience are shared with classmates during the academic year. Continued student involvement in engineering related activities with the university takes place through video tele-conferencing and participation in university sponsored designed competitions.